Paleonanthropological Research in the Laetoli Area, Tanzania

Paleontological research over the past fifty years or so has demonstrated
in spectacular fashion the significance of sites in East Africa for
documenting the earliest stages in human evolution. Laetoli in northern
Tanzania is renowned as one of the most important of these sites. Previous
research at Laetoli by Mary Leakey in the late 1970s and early 1980s led to
major new discoveries that have contributed significantly to an improved
understanding of the evolutionary history of humans and of African faunas
in general. Although this research has laid an excellent foundation for
geological and paleontological investigations in the region, it is evident
that there is still a great deal that can be learned about the course and
context of human evolution from continued studies at Laetoli.
The aim of this project is to continue with a long-term program of
geological and paleontological research at Pliocene localities in the
Laetoli area that was initiated by the PI in the summer of 1998. The main
objectives are to recover additional fossil hominids and to obtain more
detailed contextual information on the paleontology, geology, dating, and
paleoecology. The proposed program of field research and exploration in
the Laetoli area offers the potential to yield new data that will
contribute significantly to a better understanding of the fossil evidence
for human evolution and its paleoecological context. Results from these
investigations will be used to address several key problems in the study of
paleoanthropology: (1) clarification of the phylogenetic relationships and
taxonomy of early hominids; (2) a better appreciation of the anatomy and
paleobiology of Australopithecus afarensis - a pivotal species in the
interpretation of the early evolutionary history of humans, and (3) the
development of a more detailed and critical assessment of the
paleoecological associations of the Laetoli hominids in order to identify
factors that may have contributed to the initial divergence and subsequent
diversification of early hominids in Africa.